PUMP: Preparing Undergraduates through Mentoring toward Ph.D.s

PUMP: Preparing Undergraduates through Mentoring toward Ph.D.s

This project focuses on increasing the participation of highly
qualified underrepresented minority students from our region
(San Fernando Valley, Ca.) in Mathematical Sciences Ph.D.
programs. This will be done by addressing two transition
points in the academic life of those students. One is the
temporal transition from high-school to college to Ph.D
programs, the other is the intellectual transition
from general course work to independent work and research.
Built upon three cornerstones: aggressive recruitment, strong
mentoring, and continuous assessment, this project will
identify and prepare talented and motivated high-school and
undergraduate students to succeed in mathematical sciences
careers through a series of high-quality, personalized
activities. These include summer institutes, weekly
seminars, honors Calculus for high-school students, advanced
mathematics course work and undergraduate research projects
for math majors, and problem-solving sessions. With these
activities and under the guidance of the faculty involved in
this project, students willacquire the maturity needed for
initiation to mathematical discovery,
and will also broaden their vision of mathematics.

By identifying talented and highly motivated students from
minority groups, by addressing critical issues in their lives
and choices, and by providing a solid mathematical education
to them, this project will make a significant contribution to
increasing the quantity, quality, and diversity of the
Mathematical Sciences workforce. The resulting
increase in numbers and quality of minority students from our
region (particularly Hispanic/Latino students) entering Ph.D.
math programs will do much to lift other students' aspirations
and encourage them to pursue careers in Mathematics or with a
heavy mathematical component. This change will positively
impact the quality of mathematical education offered in their
high schools and in our institution's (CSUN) undergraduate
program. In particular, this project will alter the
intellectual atmosphere among faculty and students in the
institutions involved and will have beneficial
repercussions beyond the time-frame covered by the project itself.